Acquisition of an LC/MS System to Support the Integrated Teaching and Research Program at Haverford College

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Haverford College will acquire a liquid chromatograph/mass spectrometer (LC/MS). This equipment will enhance research in a number of areas including the synthesis of a) natural products; b) natural and unnatural food additives; c) natural and designed peptide sequences to understand protein folding and function and to develop new biomaterials; and d) transition metal complexes.

Liquid chromatography with mass spectrometric detection (LC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at Haverford College, a primarily undergraduate institution. These studies will have a solid impact in synthetic chemistry and biochemistry.